Intermountain/Southwest Conference on Industrial and Interdisciplinary Mathematics

0123533
Stone

This project will support the first three years of the
Intermountain/Southwest Conference on Industrial and Interdisciplinary
Mathematics to be held at Utah State University, Colorado State
University, and Arizona State University. The conference series, which
will rotate among these institutions on an annual basis, would provide
both a venue for the presentation of problems in industrial and
interdisciplinary mathematics and a forum for the discussion of ways to
broaden the traditional curriculum in order to prepare mathematicians for
industrial and interdisciplinary positions. The conferences would bring
together researchers from both academia and industry, enabling cross-
fertilization between the programs in the Intermountain/Southwest
region, and providing a venue for the students to present their work and
interact with other students, faculty, and representatives from industry.

The first of these annual meetings will be held at Utah State University
in Logan, UT in February 2002. The two-day meeting will include
sessions for invited talks by researchers from academia and industry, a
round-table discussion involving faculty and industry representatives,
sessions of shorter contributed talks and/or poster sessions, a special
session involving only graduate students, and an informational session
for undergraduates. The round-table discussion would focus on (a)
integrating the needs of local industry into the mathematics curriculum
and (b) current research activities in the region. For the first meeting,
representatives from the Boeing Company have already agreed to attend
and individuals at Motorola, Intel, IBM, and Hewlett Packard have been
approached. Participation is also expected by faculty members from
departments of physics, electrical and computer engineering, computer
science, and industrial engineering. Faculty and students from other
universities in the region and from broader areas will be invited to
attend.

This conference series will be jointly supported by the Applied
Mathematics Program and the Infrastructure Program of the Division of
Mathematical Sciences and by the Office of Multidisciplinary Activities
of the Directorate for Mathematical and Physical Sciences.